A Computer Equipment Request to Aid in a Greater Disributionof UNIDATA Products in a UNIX-Based Environment

9224282 DeSouza This proposal requests funds for one desktop, multi-processor workstation (SUN SPARCstation 10) and six small desktop workstation/terminals (SUN SPARCstation IPC) for use in several locations. At present, student use of UNIX-based workstations/terminals is limited to the previously mentioned SUN and three 1988-vintage Textronix workstations. Additional capabilities must be secured so that the students and faculty can effectively make use of the current state-of-the-art software available to the meteorological community. This project will allow Millersville University to fully utilize forthcoming technology for the foreseeable future. ***